CAREER: Computational Techniques for Sub-Micron/Nanoscale Fluid Dynamics

Abstract
CTS-0134546
N. Patankar, Northwestern University

The PI is proposing to develop a broad range of simulation techniques to address several difficult and important problems in the area of modeling nanoscale systems such as MEMS devices, including Brownian motion of complex shape microstructures, motion of charged particles and motion of flexible molecules.

The PI is also proposing to develop a hybrid continuum/atomistic simulation for systems that span a broad range of length scales. All of the techniques are either novel or are building off of state of the art work in the literature.

In the education plan, the PI proposes to develop two undergraduate courses and one graduate course in the area of computational methods for MEMS devices. The two undergraduate courses will deal with fluid simulations associated with these devices and the graduate course will incorporate the more novel numerical techniques described in the research plan.